Ground-Water Monitoring Wells to Enhance Instruction in Hydrogeology and Water Resources

9351214 Tinker Four water-table observation wells and piezometers are being installed on campus in order to enhance undergraduate instruction in hydrogeology and water resources. Using the wells, physical hydrogeology students are determining in the field the hydrologic properties of the aquifer including ground-water flow directions and velocities. Slug and pumping tests, ground-water sampling techniques, and downhole geophysical methods are being used by these students. Chemical hydrogeology students are collecting and comparing the water chemistry from lysimeters, ground-water wells, and surface waters to determine the chemical differences between ground and surface waters. Students are collecting and utilizing hydrogeological parameters for capture zone and wellhead protection strategies. Water resource students are utilizing the ground-water wells to determine the hydrologic relationships between surface and groundwater and their effect on a local flood-control structure. ***y